CAREER: A Disaggregated, Heterogeneous Context Mixing Plane for Scalable Generative AI Systems

Modern AI applications, from chat assistants reading million-word documents to generators producing minutes of high resolution video, all rely on the same core computation, called a Transformer. Today's computer systems run every part of this computation back to back on the same chip, which wastes most of the chip's power as inputs grow longer and pushes the cost of advanced AI research out of reach for most universities and small labs. This project rethinks that design. It develops a new way of organizing AI compute in which one expensive piece, called context mixing, runs on its own dedicated pool of devices, while the rest runs in parallel elsewhere. The goal is to make advanced AI faster, cheaper, and more accessible.

This research proposes a Disaggregated Context Mixing Plane, a new system abstraction that separates memory bound context mixing from compute bound dense computation so each can scale, evolve, and fail independently. The work is organized into three thrusts. Thrust 1 designs and analyzes a fault tolerant attention-as-a-service runtime and validates it on long context language model training, multi model serving, and reinforcement learning post training. Thrust 2 co designs new context mixing algorithms with the disaggregated plane for emerging workloads including video diffusion, autoregressive diffusion hybrids, and multi modal generation. Thrust 3 realizes the vision on heterogeneous accelerators through a topology aware communication library, a parallelism aware scheduler, and a kernel compiler.

The project has the potential to reduce the cost and energy of training and serving long context AI models by an estimated order of magnitude, lowering the barrier for researchers at smaller institutions and academic agencies. It opens the accelerator market to a wider range of devices beyond a single vendor, including TPUs, HBM ASICs, and smart network interface cards. All software, datasets, and benchmarks will be released open source under permissive licenses and integrated into widely used frameworks. New programming assignments and a graduate seminar will be added to the PI's machine learning systems courses, and outreach through SDSC StudentTECH, UCSD HDSI TILOS, and the Encore initiative will train a wide pipeline of next generation machine learning systems engineers that includes summer bootcamps for students.